Collaborative Research: Resource Recovery: Harnessing Nanotechnology and Membranes for Sustainable E-Waste Recycling of Critical Metals

The demand for lithium-ion batteries to power electric vehicles and portable electronics is growing. The need to recover critical minerals, including cobalt, nickel, and lithium, required for these batteries is also growing. Currently, these minerals are recovered from spent batteries through hydrometallurgical processes, which use strong acids and solvent extraction. These processes generate hazardous waste and carbon footprints. This project will use a cleaner, lower-energy membrane-based process that can selectively separate and recover cobalt and nickel and recover valuable solvents. The project will support a resilient domestic supply chain for batteries. The project will train undergraduate and graduate students in interdisciplinary research areas, including materials science, separations engineering, and sustainability analysis. The project will contribute to increasing the U.S. workforce in STEM fields.

This project will design solvent-resistant, multifunctional, nanocomposite membranes embedded with magnetic nanoparticles. The membranes will be used to recover cobalt and nickel from leachate solutions generated during solvent extraction of spent lithium-ion batteries. The nanofiltration membranes will be fabricated by incorporating superparamagnetic iron-in-carbon-matrix nanoparticles (SPINs) into the polymer backbone. The membranes will enable sequential, magnetically driven capture of cobalt and nickel at their surfaces under low and high applied magnetic fields, respectively. The extraction solvent will pass through the membrane as a high-quality, reusable permeate. By combining solvent resistance with tunable magnetic separation functionality in the membrane platform, a higher selective metal recovery will be achieved as compared to conventional hydrometallurgical methods. The process will minimize chemical waste and reduce energy intensity. Techno-economic analysis (TEA) and life cycle assessment (LCA), informed by experimental data and published literature, will quantify cost drivers and environmental impacts, including greenhouse gas emissions. The results will guide selection of polymers, solvents, and membrane architectures for future process optimization. By integrating membrane design, magnetic separations, and sustainability assessment, this project will advance fundamental understanding of multifunctional membrane materials while establishing a scalable framework for critical metal recovery from electronic waste streams.